Displacement Partioning in Volcanic Arcs: Attu Island, Aleutians

9506389 AveLallement This field-based study of the tectonically active area of Attu island in the Aleutian volcanic arc will collect detailed data on recently active brittle fault populations. The goal is to determine how to known oblique convergence across the Aleutian arc is partitioned into strike slip, thrust and extensional faults. The results of this study will significantly improve our understanding of oblique collisional orogens, and will aid in the understanding of active plate-boundary tectonic processes.